Continuation of NSF Support for an Evaluator for the Center for Nondestructive Evaluation

ABSTRACT EEC-9612514 Thompson The purpose of this award is to provide funding for the National Science Foundation Evaluator for the Industry/University Cooperative Research Center on Nondestructive Evaluation at Iowa State University. The role of the evaluator is to collect data required by the National Science Foundation to evaluate the effectiveness of the Industry University Cooperative Research Program, and to interface with the Industry Advisory Board, the National Science Foundation and the university personnel.